CAREER: PULSAR-Power Usage Estimation Leveraging Sensing and Analysis of Electromagnetic Radiation

Two converging trends are accelerating computing-related power consumption of microelectronics: the increasing energy demands of high performance systems, including servers in artificial intelligence data centers, and the widespread deployment of connected devices, such as mobile phones, wearables, cameras, and Internet connected sensors. Accurate power monitoring is essential for improving energy efficiency, avoiding performance degradation, and reducing unnecessary cooling. However, existing approaches are often costly, intrusive, incomplete, or dependent on privileged system access. This project develops a contactless monitoring approach that senses electromagnetic signals naturally emitted by computing hardware. By analyzing these signals, the system can estimate energy use, detect performance anomalies, and enable cooling systems to respond proactively to emerging thermal stress. The approach is low cost and requires no wiring changes, device modifications, or privileged software permissions.

This project is organized into three integrated research thrusts. The first thrust develops generalizable contactless power monitoring by combining physics-based models of switch mode power supplies, automated signal feature discovery, and multi-sensor fusion. The second thrust creates electromagnetic radiation-based system profiling methods that use physics informed features, temporal machine learning, and signal separation to identify fine-grained performance events, including CPU starvation, memory stalls, storage delays, network delays, and thermal throttling. The third thrust designs predictive thermal management methods that use electromagnetic signals as early indicators of heat generation to guide cooling actions before temperature increases are observed. Together, these thrusts establish a foundation for passive sensing systems that advance signal processing, machine learning, power electronics, and cyber physical control.

The project will make efficient computing easier to achieve by providing researchers, operators, and developers with a low-cost way to measure energy use, identify waste, and improve system reliability. Because the sensing approach does not require firmware access, invasive equipment, or administrator privileges, it can support small data centers, edge systems, laboratories, schools, and communities where conventional monitoring tools may be impractical. Improved workload awareness can reduce unnecessary cooling, lower electricity use, and protect computing infrastructure from overheating. The project will also support education and workforce development through open-source tools, classroom modules, student research experiences, and outreach activities in embedded systems, machine learning, signal processing, and cyber physical systems.